Efficient Model Checking of Concurrent and Dynamic Software

Software correctness is essential to avoid costly or catastrophic
failures in modern safety-critical systems, such as the ones relied
upon by NASA. Model checking is a verification technique that checks
the correctness of a system by exhaustively exploring all of its
possible behaviors. It has proven successful in the development of
hardware designs and is used by Intel and other major hardware
companies. Before model checking can significantly improve the
reliability of mission critical software, a number of basic research
problems must be addressed. The extraordinary complexity of real
systems results in an explosion in the possible behaviors that need to
be checked. The techniques devised to mitigate this problem for
hardware can also be applied to software; however, some of the most
successful ones, such as symbolic model checking, have proven
difficult to apply in this new domain.

The primary direction of this research is to adapt these techniques to
the task of checking concurrent software. Fundamental changes to the
algorithms are required due to the different characteristics of
hardware and software systems. Modern software systems are often
developed using object-oriented languages, such as C++ and Java. While
object-oriented languages ease the design phase, they introduce
additional challenges for verification. One important characteristic
of modern object-oriented software designs is the dynamic creation of
threads and objects. This research aims at leveraging existing
techniques, such as the partial-order reduction and symbolic model
checking, by extending them to address this challenge.